SGER: Educational Filming Opportunity of Multidisciplinary, Binational Scientific Expedition to Isla Guadalupe, Baja California

0086677
HAGER

This Small Grant for Exploratory Research will enable the applicant to film an expedition of Mexican and American scientists who will go to Isla Guadalupe, 160 miles off the coast of Baja California. From June 3 through June 11, 2000 the expedition will investigate the status of land and sea bird species, study the insect and arthropod populations, survey the plants, search for secretive reptiles and amphibians, monitor the effects of overgrazing, and prescribe needed conservation measures for the island. In conjunction with this expedition, there will be the first ever visit by humans to an offshore islet that remains undisturbed. The period in June when the expedition will be there is when the Storm-Petrel, a species some think to be extinct, would most predictably occupy this breeding ground.

The expedition, itself, is partially supported by a Small Grant for Exploratory Research from the Biology Directorate at NSF. The request to the Informal Science Education Program is for support to a small film crew to document the expedition. The footage obtained would be jointly owned by The San Diego Natural History Museum and North Lights Production, the film production partner. Subsequent to the expedition, potential uses of the film include full production of a one-hour documentary for national broadcast (interest has already been expressed by National Geographic), as well as production of a video for use in formal education and by museums.